Workshop: Undergraduate Entry-level Course Initiative, June 21-24, l990, Racine, Wisconsin

A workshop is to be held at the Wingspread Conference Center to address the structuring and implementation of entry level college courses so these courses may be designed to be more accessible and more rewarding to students than they presently experience. Participants from diverse types of colleges and universities and from diverse disciplines will, together, address the issues of entry level courses in science, mathematics and engineering for: 1) the major, and 2) the general college student.